The Classification Problem for Hyperbolic 3-Manifolds

DMS-0204454
Jeffrey F. Brock

THE CLASSIFICATION PROBLEM FOR HYPERBOLIC 3-MANIFOLDS

The PI, Jeffrey Brock, will synthesize diverse techniques in the
deformation theory of hyperbolic 3-manifolds to address classification
problem for hyperbolic 3-manifolds. Brock will undertake joint work
with K. Bromberg that employs the theory of hyperbolic cone-manifolds
to show that each tame hyperbolic 3-manifold M is approximated by
geometrically finite 3-manifolds. This conjecture, known as the
Density Conjecture has recently been solved by Brock and Bromberg in
certain cases. Brock will also work toward completing joint work
with R. Canary and Y. Minsky to prove Thurston's ending lamination
conjecture, which predicts that a tame hyperbolic 3-manifold is
determined by its topology and its end invariants: combinatorial
invariants attached to the ``ends'' of a hyperbolic 3-manifold. In
new joint work with Bromberg, R. Evans, and J. Souto, Brock will study
the question of whether each algebraic limit of a sequence of
geometrically finite hyperbolic 3-manifolds is itself topologically
tame. This joint project has implications for a conjecture of Ahlfors
that the limit set of a finitely generated Kleinian group has either
measure zero or full measure in the Riemann sphere.

Classifying mathematical objects plays much the same scientific role
as classifying biological, chemical, or physical phenomena in the
development of these fields. For example, with the human genome
"cracked," scientists may now isolate specific genetic causes or
predispositions to diseases, greatly furthering the ability of science
to address these problems. In the proposed research, Brock will
endeavor to solve the classification problem for a "generic" class of
3-dimensional spaces, the "hyperbolic 3-manifolds." These
non-Euclidean spaces have geometry locally like our own Euclidean
space, but their large scale geometry is expanding exponentially:
for example, light rays (a metaphor for geodesics) emanating from a
point-source diverge exponentially rather than linearly. William
P. Thurston's revolutionary and pioneering work in the 1970's and
1980's showed that almost all 3-manifolds are hyperbolic, and went on
to raise as many questions about hyperbolic 3-manifolds as it
answered. From his contributions, a compelling conjectural picture of
the right classification of hyperbolic 3-manifolds has emerged as a
lasting problem for researchers in the field of geometry and topology.
Recent work of the PI and his collaborators has put the solution of
this problem within reach; the PI will make use his NSF support to
facilitate ongoing collaborations to solve this fundamental problem,
thereby making a "database" of hyperbolic 3-manifolds available for
wider use by other mathematicians and physicists alike.